Electron Spin Resonance in a Solid State Physics Laboratory for Undergraduates

An understanding of solid state physics and its associated laboratory techniques is necessary not only for Physics majors, but also for Electrical Engineering majors. Mankato State University will purchase an electron spin resonance (ESR) system to upgrade the laboratory in the course Solid State Physics. Students will first learn to use the system, and then use it to study properties of various samples provided. For example, the ESR technique will be used to study defect concentrations in the samples. The EE majors, in particular, need experience with this type of equipment before continuing with additional required courses covering the electronic properties of materials. The university will match the award with an equal amount of funds.